1993 Gordon Research Conference on Dynamics of Simple Systems in Chemistry and Physics; Andover, New Hampshire; August 16-20, 1993

Support of foreign participants, chairs and students is provided to attend the Gordon Conference on the Dynamics of Simple Systems in Chemistry and Physics.